Acquisition of Computer Workstation Cluster to Support Re- search and Graduate Training in Geological Fluid Dynamics at the University of Minnesota

9405807 Person This award provides 43% of the funds required to acquire a cluster of computer workstations to be installed and used for research and teaching in the Department of Geology and Geophysics at the University of Minnesota. The University is committed to providing the remaining funds needed for the acquisition. Much of the research and graduate training within the Department of Geology and Geophysics is focused on quantitative studies of fluid circulation and fluid-rock interactions within the Earth's crust as well as theoretical investigations in mantle dynamics. The acquisition of a cluster of networked computer workstations will permit research and training on topics as diverse as mantle convection, mantle rheology and melt migration, river dynamics, sedimentation, subsurface brine migration, sedimentary basin hydrodynamics, and paleolimnology. ***